Research Infrastructure: Support for a Workshop on Artificial Intelligence to Assist Mathematical Reasoning

This award supports the organization of a 2-day Workshop on Artificial Intelligence to Assist Mathematical Reasoning in May 2023. This workshop brings together academic, industry, and government stakeholders to discuss the

(1) state of the art of using AI to assist mathematical reasoning, including case studies in particular domains;
(2) opportunities to advance research in AI for mathematical reasoning and potential impacts from doing so, and technical advances required to expand this initiative;
(3) current challenges and barriers to the use of AI for mathematical reasoning; and
(4) roles for stakeholders in advancing AI for mathematical reasoning.

Workshop videos and presentations will be posted online and a professional science writer will author a short workshop proceeding reflecting the key points from the workshop.